Society for Industrial and Applied Mathematics (SIAM) Interdisciplinary Conferences In Applied Mathematics

This project is a continuation of the series of Interdisciplinary Conferences in Applied Mathematics conducted by the Society for Industrial and Applied Mathematics (SIAM). The conferences are designed to bring together mathematical scientists, computational scientists, engineers, and applications scientists who are developing and applying new mathematical concepts, methods, and algorithms. A successful feature of this series is
the inclusion of interdisciplinary, academic/industry workshops, as either stand-alone workshops or as a sequence of minisymposia embedded within a larger meeting. This project is for partial support for five conferences and a diversity workshop.

The primary objective of the series is to initiate new interaction among the creators and users of the mathematical and computational science and thereby contribute to the understanding of mathematics and encourage its application to problems of society.

The series of conferences encourages the attendance of students, women, and minorities. A recent feature is a workshop to encourage diversity in the mathematical and computational science workforce.